CAREER: Capacity and Ubiquity in Multitier Wireless Networks

CAREER: Capacity and Ubiquity in Multitier Wireless Networks
Abstract
To meet diverse communication requirements of users, wireless systems must
simultaneously support wide-area access (ubiquity) and local area performance
(capacity). Multitiered wireless networks represent a natural design option that fulfills
these joint goals. These networks contain radios designed with coverage areas that vary
in their order of magnitude. Higher-tier radios, which have larger coverage, extend the
network's reach while lower-tier radios target location-specific performance. This
research studies the capacity and ubiquity supported by various multitier networks. As a
demonstration of the benefits offered by such systems, topographic and demographic data
for Susquehanna County, a rural and technology-poor county in Northern Pennsylvania,
will be used to implement derived results and to devise a multitier network for that
region. This design will take into consideration the extremely hilly propagation
characteristics of the area; location of population centers; and communication
requirements at these locations in order to better serve the needs of the county (e.g.,
provide satisfactory cellular coverage, deliver broadband access, promote distance
learning initiatives, etc.).
Overall, this research aims to develop a general and unified framework for spectrally
efficient multitier systems. Specifically, it examines the case of full spectral reuse across
tiers for various centralized and decentralized multitier configurations. In centralized
networks, users communicate exclusively to access points, which control admission and
route information. In non-centralized systems, such responsibilities are distributed over
access points and users, and ad-hoc connections are possible. The key challenge lies in
overcoming cross-tier interference produced by high spectral reuse. This research
develops analytical methods that 1) model this interference; and 2) use signal processing,
radio resource allocation, and access control techniques to jointly suppress it and deliver
desired ubiquity and capacity.
COVER SHEET FOR PROPOSAL TO THE NATIONAL SCIENCE FOUNDATION
FOR NSF USE ONLY
NSF PROPOSAL NUMBER
DATE RECEIVED NUMBER OF COPIES DIVISION ASSIGNED FUND CODE DUNS# (Data Universal Numbering System) FILE LOCATION
FOR CONSIDERATION BY NSF ORGANIZATION UNIT(S) (Indicate the most specific unit known, i.e. program, division, etc.)
PROGRAM ANNOUNCEMENT/SOLICITATION NO./CLOSING DATE/if not in response to a program announcement/solicitation enter NSF 03-041
EMPLOYER IDENTIFICATION NUMBER (EIN) OR
TAXPAYER IDENTIFICATION NUMBER (TIN)
SHOW PREVIOUS AWARD NO. IF THIS IS
A RENEWAL
AN ACCOMPLISHMENT-BASED RENEWAL
IS THIS PROPOSAL BEING SUBMITTED TO ANOTHER FEDERAL
AGENCY? YES NO IF YES, LIST ACRONYM(S)
NAME OF ORGANIZATION TO WHICH AWARD SHOULD BE MADE ADDRESS OF AWARDEE ORGANIZATION, INCLUDING 9 DIGIT ZIP CODE
AWARDEE ORGANIZATION CODE (IF KNOWN)
IS AWARDEE ORGANIZATION (Check All That Apply) SMALL BUSINESS MINORITY BUSINESS IF THIS IS A PRELIMINARY PROPOSAL
(See GPG II.C For Definitions) FOR-PROFIT ORGANIZATION WOMAN-OWNED BUSINESS THEN CHECK HERE
NAME OF PERFORMING ORGANIZATION, IF DIFFERENT FROM ABOVE ADDRESS OF PERFORMING ORGANIZATION, IF DIFFERENT, INCLUDING 9 DIGIT ZIP CODE
PERFORMING ORGANIZATION CODE (IF KNOWN)
TITLE OF PROPOSED PROJECT
REQUESTED AMOUNT
$
PROPOSED DURATION (1-60 MONTHS)
months
REQUESTED STARTING DATE SHOW RELATED PRELIMINARY PROPOSAL NO.
IF APPLICABLE
CHECK APPROPRIATE BOX(ES) IF THIS PROPOSAL INCLUDES ANY OF THE ITEMS LISTED BELOW
BEGINNING INVESTIGATOR (GPG I.A)
DISCLOSURE OF LOBBYING ACTIVITIES (GPG II.C)
PROPRIETARY & PRIVILEGED INFORMATION (GPG I.B, II.C.1.d)
HISTORIC PLACES (GPG II.C.2.j)
SMALL GRANT FOR EXPLOR. RESEARCH (SGER) (GPG II.D.1)
VERTEBRATE ANIMALS (GPG II.D.5) IACUC App. Date
HUMAN SUBJECTS (GPG II.D.6)
Exemption Subsection or IRB App. Date
INTERNATIONAL COOPERATIVE ACTIVITIES: COUNTRY/COUNTRIES INVOLVED
(GPG II.C.2.j)
HIGH RESOLUTION GRAPHICS/OTHER GRAPHICS WHERE EXACT COLOR
REPRESENTATION IS REQUIRED FOR PROPER INTERPRETATION (GPG I.E.1)
PI/PD DEPARTMENT PI/PD POSTAL ADDRESS
PI/PD FAX NUMBER
NAMES (TYPED) High Degree Yr of Degree Telephone Number Electronic Mail Address
PI/PD NAME
CO-PI/PD
CO-PI/PD
CO-PI/PD
CO-PI/PD
Page 1 of 2
0346945 CCR - COMMUNICATIONS RESEARCH
NSF 02-111 07/22/03
240795445
Lehigh University
0032896000
Lehigh University
Alumni Building 27
Bethlehem, PA. 180153005
CAREER:Capacity and Ubiquity in Multitier Wireless Networks
578,373 60 01/04/01
Electrical Engineering
610-758-6279
Bethlehem, PA 180153005
United States
Shalinee Kishore PhD 2003 610-758-4517 [email]
808264444
Electronic Signature
400,000
CERTIFICATION PAGE
Certification for Authorized Organizational Representative or Individual Applicant:
By signing and submitting this proposal, the individual applicant or the authorized official of the applicant institution is: (1) certifying that
statements made herein are true and complete to the best of his/her knowledge; and (2) agreeing to accept the obligation to comply with NSF
award terms and conditions if an award is made as a result of this application. Further, the applicant is hereby providing certifications
regarding debarment and suspension, drug-free workplace, and lobbying activities (see below), as set forth in Grant
Proposal Guide (GPG), NSF 03-041. Willful provision of false information in this application and its supporting documents or in reports required
under an ensuing award is a criminal offense (U. S. Code, Title 18, Section 1001).
In addition, if the applicant institution employs more than fifty persons, the authorized official of the applicant institution is certifying that the institution has
implemented a written and enforced conflict of interest policy that is consistent with the provisions of Grant Policy Manual Section 510; that to the best
of his/her knowledge, all financial disclosures required by that conflict of interest policy have been made; and that all identified conflicts of interest will have
been satisfactorily managed, reduced or eliminated prior to the institution's expenditure of any funds under the award, in accordance with the
institution's conflict of interest policy. Conflicts which cannot be satisfactorily managed, reduced or eliminated must be disclosed to NSF.
Drug Free Work Place Certification
By electronically signing the NSF Proposal Cover Sheet, the Authorized Organizational Representative or Individual Applicant is providing the Drug Free Work Place Certification
contained in Appendix C of the Grant Proposal Guide.
Debarment and Suspension Certification (If answer "yes", please provide explanation.)
Is the organization or its principals presently debarred, suspended, proposed for debarment, declared ineligible, or voluntarily excluded
from covered transactions by any Federal department or agency? Yes No
By electronically signing the NSF Proposal Cover Sheet, the Authorized Organizational Representative or Individual Applicant is providing the Debarment and Suspension Certification
contained in Appendix D of the Grant Proposal Guide.
Certification Regarding Lobbying
This certification is required for an award of a Federal contract, grant, or cooperative agreement exceeding $100,000 and for an award of a Federal loan or
a commitment providing for the United States to insure or guarantee a loan exceeding $150,000.
Certification for Contracts, Grants, Loans and Cooperative Agreements
The undersigned certifies, to the best of his or her knowledge and belief, that:
(1) No federal appropriated funds have been paid or will be paid, by or on behalf of the undersigned, to any person for influencing or attempting to influence
an officer or employ